Multi-scale Analysis of African Easterly Waves

African easterly waves are synoptic-scale weather systems that characterize the West African monsoon and downstream tropical Atlantic developments during boreal summer. These systems have an important association with daily rainfall over tropical Africa, and they can serve as precursors for tropical cyclones that cross the Atlantic. In this project, the PI will study the lifecycle and dynamics of African easterly waves over Africa and the tropical Atlantic, and the nature and causes of intra-seasonal to inter-annual variability of African easterly wave-activity.

The project involves the participation of three graduate-students.